Effects of Prosody and Lexical Familiarity on Perceptual and Accoustic Measures of Young Children

The most frequent source of data used to understand the nature of both normal and disordered language development is children s productions. The properties of child utterances that deviate from adult forms are of particular interest, since they appear to reflect parts of the adult system that the child has not yet mastered. One of the most common types of deviation from adult forms seen in normally developing children between the ages of 24 and 30 months, as well as in older children with language disorders, is omissions, including omissions of mono-syllabic grammatical morphemes (e.g., the ) and unstressed mono-morphemic syllables (e.g., the first syllable of giraffe ). Data from numerous researchers suggest that such omitted syllables are not simply missing from children s representations of language. The proposed research continues in this framework, but begins to move beyond the question of whether normally developing children have some representation of syllables they omit to a question of why they omit these syllables. In keeping with this expanded focus, the proposal begins to draw more heavily on studies of adult language production as a framework for understanding child production. The proposed experiments are divided into three sets. Exps. 1-4 are based on observations of the role of prosody (i.e., rhythm and intonation) in children s omissions, along with an observed bias for children to produce final syllables. The goal of these experiments is to compare two prosodic accounts of children s omissions, one proposed previously and a new account derived from current linguistic theories of prosody as well as studies of adult language production. If the new account is supported, it would provide a unified account of English-speaking children s weak syllable omissions and a framework for viewing the relation of immature and mature language systems. Exps. 5-8 are based on the observation that children are more likely to omit weak sylla bles from sentences containing an unfamiliar word. These experiments promise to shed light on how utterance complexity affects child productions and how prosody fits within the larger language production system. Two of the experiments in this section also use work on adult language production to make predictions about child production. Exps. 9-10 are based on a pilot study that suggests children maintain a slot for weak syllables that they appear to omit. These experiments have the potential to confirm the notion that children have some representation of elements that they do not produce in an adult-like way. They also have the potential to relate child omissions to studies of adult production. Taken together, the experiments will reveal considerable information about normally developing children s growing knowledge of language and how this knowledge is implemented by their changing language production system.